Integers Conference 2007

The University of West Georgia will be host to the Integers Conference 2007, a conference in the areas of combinatorics and number theory. The conference will follow the style of the successful "Integers Conference 2003," and "Integers Conference 2005," The 2005 conference will be held over a four-day period, October 24-27, 2007. One of its main goals will be a catalyst for important collaborative projects among mathematicians and computer scientists representing the areas of additive number theory, multiplicative number theory, probabilistic number theory, combinatorics, combinatorial optimization, game theory, and Ramsey theory. There will be several plenary speakers including George Andrews, Ken Ono, and Florian Luca. There will also be approximately sixty 20-minute talks.

The conference will gather mathematicians, graduate students, undergraduate students, and others interested in combinatorics or number theory. It will include student research talks, and promote interaction among research mathematicians at all stages from the talented undergraduate to the internationally distinguished researcher. A variety of areas of expertise will be represented from within the general area of discrete mathematics.
Leading experts will present their latest work, and there will be much collaboration among participants. The research areas have many applications, including cryptography, genetics, neural networks, mathematical biology, coding theory, sequences for communications applications, and interconnection networks.